An Integrative Study of Adaptive Radiation in West Indian Anolis Lizards

Losos 9318642 The lizard genus Anolis is among the largest vertebrate genera, with more than 300 described species. Half of these occur in the Caribbean. Of particular interest are the anole faunas on the islands of the Greater Antilles, where each island has a set of ecologically and morphologically distinctive species, called ecomorphs. Comparisons across islands indicate that the sets of ecomorphs on each island are essentially identical, although they are not closely related. This study will explore the biological basis for anole diversification using two approaches. First, laboratory studies of DNA sequences will be used to determine relationships among species. Second, the processes by which species have adapted to different habitats will be studied using a combination of laboratory and field studies. Field observations will determine how species differ in habitat use. Functional studies will then investigate whether morphological differences among species have functional consequences that result in species being best adapted to the habitat they use in nature.